CI-ADDO-NEW: PhantomNet: An End-to-End Mobile Network Testbed

The importance of mobile devices and the mobile networks that support them
can hardly be overemphasized. Despite fantastic advances in wireless
technologies and mobile devices, current mobile network architectures,
while packet based, overwhelmingly resemble their circuit-switched forebears.
To enable the fundamental research and innovation demanded to advance
mobile networking beyond the state-of-the-art, a new facility called PhantomNet,
will be developed and coupled with the Emulab testbed at the University of Utah.
PhantomNet will be a fully programmable end-to-end mobile testbed with
unique features to facilitate research efforts at the intersection
of mobile networking, cloud computing and software defined networking.

PhantomNet will enable hands-on teaching in mobile networking
technology in a manner that simply does not exist today. Further,
the facility will enable forward-thinking research that re-considers
the technical and economic factors involved with the interplay
between mobile networks, software defined networks and cloud technologies.
The availability of a physical facility will help researchers to
transition new mobile network designs from theory into practice.
Given that a large fraction of the world's population are already
users of such networks, and that fraction is growing, the research
enabled by this infrastructure will have the potential to have truly
transformative impact.